Presidential Young Investigators Award

This Presidential Young Investigator Award is to study the role of shear localization as regards crack tip fields and crack propagation in thermal elastic-viscoplastic solids. Shear band formation as well as its dependence on the different material parameters will be investigated.